First International Conference on Computational Simulation in Congenital Heart Disease, Feb 26-27, 2010 in San Diego, CA

1006188
Marsden

The 1st International Conference on Computational Simulation in Congenital Heart Disease (CSCHD 2010) will be held in La Jolla (San Diego), California in February 2010. This meeting, the first of its kind in this arena, will bring together researchers in both engineering and medicine for a two day workshop that will include both research and educational components. The meeting will focus on the application of novel computational and engineering methods to problems in congenital heart disease with an eye towards improved understanding and treatment paradigms. This meeting will be a unique opportunity for clinicians and engineers to attend the same conference, which is not typically the case in large professional society meetings. The meeting will expose both engineers and clinicians to cutting edge research, which, in turn, will lead to an increase in the physiologic and clinical realism of simulations, and an increase in adoption of simulation methods by clinicians.